The World Congress on Intelligent Manufacturing Processes and Systems; Mayaguez, PR; February 13-17, 1995

9412675 Milacic This project is a World Congress on Intelligent Manufacturing Processes and Systems. It will focus on the related manufacturing science and technology, product design for intelligent manufacturing, and university/industry/government cooperative programs for the factories of the future. The event will provide a forum for the exchange of knowledge, experience and information regarding the recent trends and developments related to the intelligent factories of the future. Interdisciplinary and multidisciplinary approached will be addressed.